An Undergraduate Interdisciplinary Artificial Intelligence Laboratory.

This project is to develop an artificial intelligence laboratory to be shared by both the department of science and engineering and the department of psychology. The laboratory will be equipped with eight "pseudo" Lisp machines which will also have the capability to handle Prolog and Smalltalk. Four new courses are proposed which will be jointly developed by the two departments. Thus, the new lab will serve both the computer engineering and the cognitive psychology students.